U.S.-China Cooperative Research: Study In Bimetallic Catalysis Between University of Delaware and Peking University

0321942
Chen

This is a cooperative project between Dr. Jingguang Chen, University of Delaware, and Professor Xie Youchang, Beijing University, on synthesis and characterization of bimetallic catalysts and their catalytic properties. The proposed research on the Ni/Pt bimetallic catalytic system project is innovative. The project provides opportunities to train U.S. students. The expertise involved in the U.S. and China is complementary and benefits are mutual. The project is jointly supported by the National Science Foundation and the National Science Foundation of China.